Program Checking

This research is concerned with a new idea for increasing the reliability of software, an idea that the principal investigator calls program result checking (or program answer checking). The idea is to design programs to check their work. As a rule, students in the sciences must learn that each time they "solve" a problem, they should "check" their result. If an equation is solved for x, then x should be substituted back into the equation to ensure that it works correctly. The importance within mathematics, science, and engineering of checking one's work cannot be emphasized enough. It is a crucial ingredient of all good work. Is it possible/desirable for a program to check its own work? This research seeks to show that in a number of cases it is also possible for programs to correct their own work. Checking sounds similar to Verification, but it is different. For one, Verification proves that a program is correct on all inputs. Checking only proves that it is correct on the given input. It is felt that Checking can be of use to Verification and Testing, just as Verification and Testing can each be of use to Checking. More to the point, it is felt that program checking has the potential to increase program reliability substantially.